Foundations of Phylogenetic Inference

The discipline of systematics attempts to reconstruct phylogenetic relationships among species from data concerning their similarity and difference. Over the past two decades, there has been a vigorous debate among biologists as to which methods ought to be used to make these inferences to species relationships. The principal methods discussed are: the phenetic methods (which use the overall similarity of a pair of taxa as a measure of the closeness of their descent), the cladistic parsimony (which uses similarity of derived, not ancestral, characters as evidence), compatibility methods (which discard characters according to a certain recipe and then use cladistic parsimony), and explicitly statistical methods (primarily maximum likelihood techniques). These methods sometimes disagree with each other as to which phylogenetic hypothesis is best supported by given data, and thus biologists have constructed defenses of their own preferred methods and criticisms of rival approaches. Dr. Sober, under this grant, will complete his efforts at clarifying the issues involved and developing an epistemological framework for understanding the problem of phylogenetic inference. Philosophical issues addressed include the role of parsimony in nondeductive inference, the conditions under which postulating a common cause for two events is preferable to postulating separate causes, and the relevance of asymptotic criteria (like statistical consistency) to the problem of likelihood inference. This study promises to be of great interest both to systematic biology and the philosophical foundations of biology.